Posttranscriptional Regulation, a Novel Mechanism for Ion Channel Regulation and Dendritic Excitability

The protein mTOR (or mammalian Target Of Rapamycin) regulates cell growth, proliferation, motility, energy status, and survival. In the brain, mTOR activity is important for learning and memory. Dr. Raab-Graham has shown that mTOR suppresses the local translation of the voltage-gated potassium channel Kv1.1. Many voltage-gated ion channels are important for proper neuronal communication. How their expression is regulated during learning and memory is unknown. With a strong background in ion channels, cell biology and biochemistry her lab will identify the physiological and molecular mechanism for mTOR suppression of Kv1.1. She hypothesizes that several different types of ion channels are under the local control of mTOR. Discovering how mTOR suppress Kv1.1 translation may lead to identifying a network of functionally related genes that are inhibited by mTOR.

This project provides training for undergraduates, graduates, and postdoctoral students in the multidisciplinary project addressing the molecular, biochemical, and physiological mechanisms of learning and memory, an intrinsic benefit to society. Members of the PI's laboratory participate in the public outreach program, Memory Matters. This event educates the community by engaging them in scientific demonstrations of our research, in a manner designed to educate and inform non-scientists. Through this involvement, future generations of scientists are learning to serve as liaisons between the scientific community and the general public. In addition, this project will help support the development of new technology to detect changes in electrical signaling in neuronal dendrites. This endeavor is part of an international collaboration with scientists in Japan. Furthermore, the academic training ground provided by this project will concentrate on retention of women in science, by encouraging all students to be rigorous scientists, to serve as scientific liaisons, and to learn how to effectively balance the demands of a scientific career with other life obligations.